Small Grants for Exploratory Research: Maintenance Funding for the CM-2

9318817 Berman University of California, San Diego has just been given the opportunity to acquire from DoD (NRaD) an 8K CM-2. This machine is a SIMD machine and provides a distinctly different programming model than that of machines at UCSD and the San Diego Supercomputer Center (SDSC). Acquisition of the CM-2 would provide a major resource for our teaching and research. The CM-2 would be enormously useful to the Parallel Computation Lab, CSE Department and UCSD in three areas: teaching, research and heterogeneous computing.